Synthesis and Reactions of Early Transition Metal Complexes

In this research project supported by the Inorganic, Bio- inorganic and Organometallic Chemistry Program, Stephen L. Buchwald of the Massachusetts Institute of Technology will investigate the syntheses, structures and chemical reactivities of novel organometallic compounds of the early transition metals. The aim is to find compounds which display unprecedent- ed reactivity and structure, and to develope efficient methods for the synthesis of polyfunctionalized organic compounds including numerous classes of heterocycles. The work has two thrusts. The first is to examine the tri- methylphosphine-zirconocene system with benzyne, benztriyne, naphthatetrayne and other similar organic moieties as ligands and to probe the limits to which a metal can stabilize an unstable organic fragment. The second thrust is to examine similar chemistries of cyclopentadienyl compounds of other early transition metals including titanium, hafnium and tantalum.